Experimental Psychology for Young Scholars

Twenty high school juniors and seniors will each complete four experimental psychology projects. Each project will have its own preparation and methodology component, hands-on procedure, data analysis, and written and oral presentation. Participants will discuss career opportunities in experimental psychology and related fields with staff and visitors. Ethical and philosophical issues will be taken up in general sessions, and in the specific environments of the four experimental projects. Participants will have exclusive use of unusually well-equipped laboratories.